Performance Prediction Design and Scale Up of Multistage Column Extractors

This research program deals with the performance prediction, design, and scale up of extraction columns for reactive and non-reactive solvent extractions. To fulfill the objectives of the research, the analysis of mechanically agitated reactive dispersions in extraction columns will be undertaken with account being taken of: (1) droplet rate processes of coalescence and redispersion (2) macroscopic flow patterns of both phases (3) microscopic interphase transport processes (4) extraction equilibrium and chemical kinetics The results of the research will enable a more effective and reliable design of extractors to meet the increased demands on separation power, selectivity, performance prediction, and scale up of process equipment for important advanced technologies such as biochemical separations, dilute waste stream treatment, recovery of environmentally hazardous substances, nuclear fuel separations, and non-ferrous metal production through hydrometallurgical solvent extractions.